Millstone Hill Observatory Investigations of Earth's Upper Atmosphere

This three-year program is a continuation of the Millstone Hill Observatory in Westford, Massachusetts. This incoherent scatter radar facility supports both optical and radar operations, encompassing a broad range of topics involving processes and dynamics of the thermosphere, ionosphere and magnetosphere, as well as investigations of plasma waves and magnetic storm effects. Data will be deposited in the CEDAR data base at NCAR for community use.